U.S.-Korea Cooperative Research Program: Numerical methods for the computation of singular solutions and stress intensity factors

0139053
Zhiqiang Cai,
Purdue University

The project is about international collaboration with researchers in Korea, focusing on the development and analysis of new finitie element method using singular and dual singular functions for both interface and elasticity problems and implementation of multilevel methods for the resulting system of linear equations. From this study, the application of the proposed method will be identified in the are of fracture mechanics.